STRIVE: Science Teachers Research Involvement for Vital Education

This project proposes a diversified plan to promote the professional development of teachers and to raise the quality of teaching. Twenty science and mathematics teachers from junior and senior high schools in Tennessee will participate each year. The project will coordinate with and complement the State of Tennessee's Career Ladder Program. Participating teachers will engage in full-time energy-related research for eight weeks during the summer. The summer program will include weekly workshop sessions designed to provide the opportunity to develop resource materials and to explore creative ways to enrich the teaching of precollege science and mathematics. To reinforce and encourage implementation of the most important aspects of the summer research participation workshop programs, the following complementary academic-year activities are planned: Academic-Year Forums. Six forums will be held during the academic year. The forums will involve teachers who participate in the summer program, other science and mathematics teachers, and students. Science Mentor Visitations Program. The research scientists who supervise the summer research participants will make visits and given presentations, assist students and teachers in laboratory experiments and research projects, and provide other help in their areas of expertise. Scientist Lectures Program. Scientists from the U.S. Department of Energy Laboratories in Oak Ridge and from other facilities will visit area schools to present lectures and laboratory demonstrations. Teacher Bootstrap Program. Teachers who participate in the summer program will serve as in-residence resource teachers and will be encouraged to make presentations and to demonstrate their knowledge and experience.